Mathematical Sciences: Rankin Selberg Integrals and Applications

This award supports the research of Professor S. Rallis and Professor D. Ginzburg to work in automorphic functions. Professor Rallis intends to work on the relation of the Rankin Selberg integral representation of L functions to various problems in the theory of automorphic forms. Professor Ginzburg intends to work on applications of the Rankin Selberg method to Langland's conjecture. Modular forms arose out of Non-Euclidean geometry in the middle of the nineteenth century. Both mathematicians and physicists have thus long realized that many objects of fundamental importance are non-Euclidean in their basic nature. This field is principally concerned with questions about the whole numbers, but in its use of geometry and analysis, it retains connection to its historical roots and thus to problems in areas as diverse as gauge theory in theoretical physics and coding theory in information theory.